Industry/University Cooperative Research Center in Ergonomics

The Industry/University Cooperative Reseaerch Center (I/UCRC) in Ergonomics at Texas A&M University is being renewed for the first year of a five year continuing grant. The research of the Center will contribute to the technology and information base necessary to evaluate and redesign existing workplace environments and work methods and to provide the leadership for the effective design of future work systems. The Center will continue to provide an opportunity for industry to coordinate and direct research objectives in response to safety, health, and ergonomic guidelines and standards that are being adopted. A focused research program will span interdisciplinary fields aimed at reducing injury/illness rates; reducing cumulative trauma disorders; reducing costs; increasing productivity; and developing responses and research for regulatory activity.